Fluid Dynamics and Heat/Mass Transfer in Rotating CVD Reactors

This project is an experimental and theoretical study of fluid dynamics and heat/mass transfer problems in rotating chemical vapor deposition (CVD) reactors run at atmospheric pressure. The complex geometries make analysis of these transport phenomena very difficult. Conventional velocity and temperature measurement techniques are inadequate for rotating reactors. Temperature is measured using miniature thermocouples, and velocity using fiber-optics laser velocimeters. The theoretical analysis consists of correlating this data for various reactor configurations. The results could not only be used to design new and more efficient reactors for the larger diameter (~6 inches) wafers needed for VLSI, but will also increase basic knowledge of the fluid dynamics of rotating flows. The ultimate utility of the research will be in developing industrially viable techniques to grow highly uniform, large-size semiconductor wafers using CVD at atmospheric pressure.